Institute for Research on Teaching/American Federation of Teachers/Toledo "Support Teacher" Project

This award will support a five-day workshop involving eight teachers who have been selected and prepared to serve as "support teachers" in the Toledo public schools. The eight teachers are divided into four two-person teams. Each team consist of one science teacher and one mathematics teacher; four different schools are served, each by one team. A support teacher is assigned a reduced classroom load and therefore has time to work with other teachers who are less well prepared. The workshop is a small but essential part of a larger venture that was designed and conducted by the Institute for Research on Teaching (IRT) at Michigan State University in collaboration with the American Federation of Teachers and the Toledo Public Schools. During an already-completed phase of the project, the eight teachers participated in 30 hours of professional development seminars conducted by IRT personnel. This workshop, scheduled for August of 1988, will serve to solidify gains the teacher have made in knowledge and skills. In the fall they will assume their new duties as support teachers in the Toledo schools. This project will test a model for the preparation of support teachers and will assess whether the use of support teachers is and efficient mechanism for achieving improvements in the teaching of science and mathematics in the schools.